An Open Science Platform for the Neurobiology of Language Community

The advent of non-invasive brain imaging at high spatial and temporal resolution in awake, behaving human beings has had a profound impact on the study of language in the brain. It is now the ten-year anniversary of the first international conference on the Neurobiology of Language, a field that has grown substantially since then and continues to blossom. Studying the neurobiology of language requires highly specialized skills (e.g., brain imaging) and broad multidisciplinary knowledge (e.g., psychology, linguistics, neuroscience). In order to promote scientific inquiry of the highest quality, it is vital to promote dialogue and interaction among the relevant disciplines. This project explores how to facilitate this interaction.

The "neurobiology of language" is the biological implementation for representations and processes involved in the production and understanding of speech, sign, and language in context. Previously, brain structures and functions for language could only be inferred from studying humans with brain injury. By monitoring the anatomical encodings and physiological dynamics of language processing in awake, behaving human beings, researchers can now study human language at a biological precision previously possible only in animal models (of functions other than language). Concomitant with these new approaches has been a dramatic increase in the number of investigators dedicating their effort to understanding the biological basis of language. The growth in the number of investigators and the use of expanded techniques and theoretical perspectives have driven the need for enhanced transparency, integrity, and robust and rapid research dissemination. The PIs will explore these topics while developing systems and operations for open science, facilitating reproducibility and replicability of research, and dissemination of new findings.